Textured Iron Titanate: A Route to Tough, Single-Phase Ceramics

9411477 Faber It is the intent of this proposed work to examine a novel approach to toughening single phase materials without second phase addition by creation of "single phase laminates." The prototype material for study is iron titanate with an exceedingly low thermal expansion coefficient along one of its axes. Textures in the ceramics can be developed through magnetic field assisted techniques. The studies proposed consists of fundamental fracture studies of iron titanate, both random and textured, monolithic and laminated, to gain an understanding microstructure-processing relationships. Small angle microcracking in situ. Finally the design criteria will be established for tough, single phase ceramics through laminated microstructures. %%% The proposed work will examine a novel approach to toughening single phase materials iron titanate without second phase addition. The textured material will be processed with the assistance of magnetic field processing. An understanding of microstructure- processing relationship and the design criteria for tough, single phase ceramic through laminated microstructure will be established. ***